Working Toward Equitable Organizations: Building Capacity for Leadership of Color in Outdoor and Environmental Science Education

Implicit bias and inequities limit the quality, effectiveness, and widespread acceptance of the outdoor and environmental science education field. The field continues to struggle to find resonance with the most tenacious concerns and challenges of communities of color, especially with regards to environmental issues that disproportionately impact the health and economies of these communities. In a time of calls to action to dismantle systemic racism and bias, there is a renewed interest in solution driven approaches to address matters of equity, inclusion, and cultural relevance in education and within organizational change frameworks. This Innovations in Development project will develop and test a model to build individual and organizational capacities to create and sustain equitable, inclusive, culturally relevant workplaces and learning environments, and support professionals of color currently in positions in outdoor science programs and may be at risk of leaving the field. With capacity building support for systems change, the model will help organizations to lead with equity as they plan for the future. The need for this work could not be timelier. If successful, the knowledge gleaned from the Working Toward Equitable Organizations model could inform future efforts to transform the field through institutional changes that result in a more diverse STEM workforce at all levels of leadership and inclusive programs and practices that support STEM learning and engagement in outdoor and environmental science education programs.

Over the three-year project duration, the project will be centered on two strands: (1) Support for Organizational Systems and (2) Professionals of Color Engagement. For the first strand, two cohorts of outdoor science program leaders will engage in intensive reflection, professional learning, and development. They will consider all aspects of their work through an equity lens, develop action plans, and make necessary adjustments to curricula, guiding documents, and practices. For the second strand, a cohort model will be used to create professional learning and engagement communities for professionals of color in outdoor science programs as they navigate the challenges associated with being in the minority in a predominately white-dominated field. In addition, a rigorous research study will be conducted to examine how the professional learning model contributes to changes in organizations to create more inclusive and equitable career paths for professionals of color and will describe under what conditions outdoor science programs are able to make institutional change. A culturally responsive evaluation will inform the design and development of the model and assess its effectiveness. Together, the evaluation and research will identify promising aspects of the work and directions for future scaling. The project will develop and document a scalable model for program leaders and professionals of color that builds the capacity of organizations to promote equity, inclusion, and cultural relevance. It is poised to impact twenty organizations nationwide, 60 professionals of color and ultimately, 200,000 students annually.

This Innovations in Development project is funded by the Advancing Informal STEM Learning (AISL) program, which seeks to advance new approaches to, and evidence-based understanding of, the design and development of STEM learning in informal environments. This includes providing multiple pathways for broadening access to and engagement in STEM learning experiences, advancing innovative research on and assessment of STEM learning in informal environments, and developing understandings of deeper learning by participants.